The Writing Project

Ways of Knowing, Inc. is producing two one-hour film documentarties for public television on the origin, nature and history of writing. "The Writing Project" (working title) is about the study of writing as a technology. The goal of the films is to explain how writing systems work and to make people aware of the importance of writing in societies. The programs will address what reading and writing is, how writing was invented and how it is used in dozens of different systems around the world. The focus is on the diversity, yet sameness, of writing systems and on the grand variety of its uses. The target audience is the PBS television audience, with follow-up educational viedocassette distribution to schools and colleges to be used as an introduction to linguistics "basic text." The program's outreach will be enhanced by a companion website and book.